Models for the Use of Accident Precursor Data to Estimate Rare Event Frequencies (Decision, Risk, and Management Science)

The application of a model for the use of data on accident precursors or "near misses" will be investigated in estimating the frequencies of rare events. In particular, this work will focus on the application of the proposed framework in cases where the available data (i.e., the observed precursors or near misses) are subject to widely divergent interpretations by the experts, and as a result expert opinion provides relatively little guidance to decision makers. The results of this work will: (1) provide a formal procedure for the use of accident precursor data in estimating event frequencies; and (2) aid decision makers in evaluating the credibility of expert interpretations of accident precursors. Interactive activities include giving lectures in several senior undergraduate and graduate-level courses on risk analysis and reliability engineering, participating in the weekly seminar series of the Department of Chemical and Nuclear Engineering, with particular emphasis on inviting other women engineers and scientists as speakers, and with the faculty advisor for the student chapter of the American Nuclear Society, which has a large female membership, and with the local student chapter of the Society of Women Engineers. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in sience and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.